Marine Geological Samples Collection: Woods Hole Oceanographic Institution

The core and dredge collections of Woods Hole Oceanographic Institution will be maintained, samples distributed, and data provided to the NOAA National Geophysical Data Center. The core/dredge repository provides a valuable source of marine seafloor samples for use by national and international scientists.